PRF: Molecular Phylogeny and Systematics of the Matisieae (Bombacaceae), A Tribe of Neotropical Rain Forest Trees

The Matisieae consists of 10 genera and about 80 species of trees distributed throughout most lowland, neotropical rainforests. Taxonomic studies on the tribe are underway but the relatively abundant morphological, chemical and biogeographic data are presently insufficient to determine unambiguously the correct phylogeny. This two-year postdoctoral fellowship research effort will include the collection of leaf and seed material of representative Matisieae and other Bombacaceae in Colombia, Panama and Costa Rica, with subsequent use of restriction endonuclease analysis of the chloroplast genomes. These analyses will generate statistically robust phylogenies that will allow resolution of historical problems of classification within the Bombacaceae and will provide, for the first time, a certain evolutionary framework upon which to evaluate traditional data. An understanding of the evolutionary polarities of morphological character states within the Bombacaceae will permit re- valuation of its evolutionary and taxonomic relationships with the economically important cotton (Malvaceae) and cacao (Sterculiaceae) families and other members of the order Malvales. From a broader perspective, two additional benefits will result. First, evolutionary studies in this lineage of trees may be applicable to many other woody groups of wet, neotropical forests. Secondly, data on the chloroplast genomes of these long-lived woody plants with good fossil records will benefit our understanding of the role of generation time in chloroplast DNA evolution.